A Module-Based Multimedia Teaching Environment-Curriculum Development for Computational Methods in Materials Design and Synthesis of Environmentally Benign Chemical Systems

9315411 Rutledge The major objective of this project is that by using modern multimedia based approaches interactively presenting the subject, compact disk storage devices for archiving the materials and advanced authoring environments to aid the preparation of course materials it is possible to substantially reduce the time to develop new modules for the course called Integrated Chemical Engineering. Two research areas will be used to illustrate the new approach. One is the use of computational Chemistry methods to aid the design of new polymeric materials. Another test module to be developed involves the synthesis of environmentally benign chemical processing systems.